CAREER: Robust On-Line Location and Routing for Urban Service Systems

ABSTRACT

CAREER: Robust On-Line Location and Routing for Urban Service Systems
Elise Miller-Hooks
Proposal No. 9875305

This research focuses on the development of the conceptual framework and
algorithmic steps for real-time location and routing decisions in dynamically
changing environments for urban service operations, including emergency
response services, vehicles carrying hazardous materials, and response teams to
incidents involving hazardous materials. Response time and the associated
level of service of many of these urban service operations, such as ambulance,
police, fire and emergency repair, depend on travel times experienced on the
roadways and the relative location of the call for service to that of the
response vehicle. Thus, optimal location and routing decisions are vital to
the performance of many emergency service operations. Real-time information
can be used to make improved tactical and operational location and routing
decisions for emergency services and other urban operations, including the
transport of hazardous materials. However, it is critical that procedures that
dynamically respond to current conditions on the state of the network consider
the time-varying and uncertain nature of future travel conditions in order to
generate robust solutions; i.e. solutions that will remain optimal, or nearly
optimal, despite variations in travel conditions and that can be applied to a
variety of situations. The inherent stochastic and dynamic characteristics of
future travel conditions, including the probability of arc or node failures, as
well as the spatial and temporal correlation in travel conditions and the
possibility of multiple conflicting objectives, are considered in this work.
Accompanying this research effort is an integrated educational initiative to
provide students with fundamental knowledge and skills drawn from multiple
disciplines to allow them to solve a broad range of difficult problems, to
integrate research and teaching through inclusion of real-world problems in
coursework, to impart an interest in transportation graduate studies and
promote retention of women and underrepresented minorities in engineering, and
to develop skills in using non-lecture based pedagogical techniques for
improved comprehension of fundamental engineering concepts.